NSF Young Investigator/Ultrafast Studies of Chemical Dynamics

In this NSF Young Investigator project in the Physical Chemistry Program of the Chemistry Division, Philip Anfinrud will study the dynamics of transient intermediates formed on time scales between tens of femtoseconds to microseconds during various chemical transformations. A transient infrared absorption spectroscopic technique under development will offer broad spectral coverage, from 450 nm to mid-infrared wavelengths, with better than 10 wavenumber spectral resolution and sub-picosecond time resolution. These capabilities will be used to investigate the relation between structure and function in ligand binding heme proteins, the dynamics of ligand motion in heme proteins, the pathway of photoisomerizations, and the dynamics of charge carrier relaxation in semiconductors. %%% The events that constitute chemical change occur on time scales ranging from trillionths to millionths of a second. An understanding of the pathways for such transformations requires detailed knowledge of the very short-lived intermediates involved. The experiments in this project will aid in elucidating the structure of these transient intermediate species as well as the dynamic pathways by which the chemical transformations take place. With such knowledge the relation between structure, dynamics, and function of processes, such as the cooperative binding of oxygen by myoglobin, will be made clearer, and models for protein dynamics can be put forward and tested.